Mathematical Sciences: Spectral Analysis and Index Theory

9403652 Lott The research entails several problems in index theory and analysis of the spectrum of pseudodifferential operators on manifolds. Topological questions relating to the index of these operators on possibly singular spaces will be addressed. The research has potential applications to other areas of mathematics, quantum theory and solid state physics. ***